Mathematical Sciences: Geometric Analysis and Partial Differential Equations

9404494 Jacobowitz The research involves the geometry and analysis of sytems of partial differential equations on classes of manifolds inheriting partially complex structures. This is related to the generalization of the Stein and Kaehler structures arising in the complex case. The study of such differential systems has applications to other areas of mathematics and general relativity. ***